Earth-View: Leadership in Earth/Environmental Science for North Carolina Schools

9911850
DAWKINS

This three-year project proposes to provide professional development and leadership training for 45 teachers in the content of earth and environmental sciences covering the state of North Carolina. The teachers will meet each summer in different parts of the state to learn directly about the environment in that region. These regions are the coastal region, the cental region and the western, mountain region. These teachers, at the end of the three years, will then provide training to other teachers in their geographic area of the state. Each teacher will have very substantial professional development, well beyond 100 hours, approaching 240 hours over the three years. In addition, each teacher would be given graduate credit plus other recertification units for successful completion of the professional development. No teachers outside the state of North Carolina will be eligible for participation.